Mathematical Sciences: Theory of Gergman Spaces

9321964 Zhu This award supports mathematical research on problems related to the modern theory of functions of a complex variable and operator theory for operators defined on spaces of such functions. The primary objective of the work focuses on the structure of Bergman spaces of analytic function defined in a disc. Recent results have established a factorization of functions in the Bergman spaces similar to that found in the classic Hardy spaces. With this new development arises the possibility that a classification of the subspaces invariant under multiplication by the identity function will be possible. Work will be done on this question. A second, related line of investigation concerns Toeplitz operators arising from projection of functions into the Bergman space. One question of particular interest is the identification of those Toeplitz operators which are hyponormal. Finally, work will be done on Bergman spaces in several complex variables to study those domains for which the Bergman projection of the Lp-functions is surjective onto the space of Lp-holomorphic functions. Studies in complex analysis combine the regularity of analytic functions, the geometry of complex domains and the subtleties of boundary characteristics to provide a basis for deep and powerful ideas relating many different areas of mathematics. The application have ranged from partial differential equations and harmonic analysis to the geometry of circle packing. ***